Performance Based Soft Real-time Scheduling in Networked Control Systems

Lemmon Michael
CCR-0208537
"Performance Based Soft Real-time Scheduling in Networked Control Systems"

This project is developing novel methods for the design of high performance networked control systems. The networked control system under consideration distributes controller functionality over a collection of micro-controllers that communicate over an ad-hoc communication network. The project uses a soft variation of the (m,k)-firm guarantee model to characterize task scheduling in networked control systems. The project consists of three tasks. The first task obtains upper bounds on dropout probabilities that assure robust performance of the closed loop system. These bounds define the soft (m,k)-model, which is one major emphasis of the research. The second emphasis is on the design of implementable schedulers that enforce the soft (m,k) model arising from the control design.

The project's broader impact is achieved through the inclusion of methods and concepts developed in this project in undergraduate courses that introduce embedded system principles.